CISE Postdoctoral Program: Macromolecular Pattern Recognition

9505631 Gribskov This award is a postdoctoral associateship award to Dr. Michael Gribskov. The postdoctoral associate is Dr. Stella Veretnik and she will carry out computational biology research in macromolecular sequences and structures. ***